Acquisition of A Three-Component Fiber Optic Phase Doppler Particle Analyzer/Laser Doppler Velocimeter

ABSTRACT CTS-9512541 A three-component fiber optic Phase Doppler Particle Analyzer/Laser Doppler Velocimeter (PDPA/LDV) which will be acquired for non-intrusive measurements of two-phase flow. The PDPA/LDV system will enhance current research projects at the university, and will provide opportunties for a multitude of new collaborative and interdisciplinary efforts. Research programs include gas-solid flows and the modulation of gas-phase turbulence in the presence of particles, turbulence studies using Planar Laser Induced Fluorescnence, combustion research and turbulent mixing phenomena, chemigation research, and flow characterization in plasma etch systems. ***